Planning Grant Proposal for the National Youth Science Teaching Institute: Meeting U.S. Science Education Needs for the 21st Century

9353216 Shuman This Planning Grant will investigate the possibility of developing a national program in Teacher Enhancement for teachers in grades 7 12 who teach environmental science. The planning grant will study selection procedures for the participants, identify exemplary curriculum and recruit nationally recognized staff. It will be held at the site of the National Youth Science Camp in West Virginia an ideal setting for environmental science education. ***